SBIR Phase I: One-Step Manufaturing Process for Low-Cost Silicon Carbide/Silicon Carbide Composites

*** 96-61185 Kowbel This Small Business Innovative Research (SBIR) Phase I project will investigate a low cost process to produce silicon carbide/silicon carbide (SiC-SiC) composites. These composites exhibit excellent mechanical, thermal, and corrosion properties. Their applications in aerospace and energy-related areas are greatly hindered by high manufacturing costs, lack of oxidation stable interfaces, and selectively poor creep resistance of the SiC fibers. Phase I will study a unique way to produce pure beta-SiC/beta-SiC composites via a direct chemical vapor reaction (CVR) of low-cost carbon-carbon (C-C) composites. CVR-derived fibers are expected to exhibit excellent creep resistance, while an in-situ generated porous SiC interface is expected to provide good fiber pull-out and good environmental stability. Lowering the cost of SiC-SiC composites not only will expand applications in aerospace industries, but also provide opportunities in civilian industries such as automotive, burners, combusters, process equipment, heat recovery equipment, and separation/filtration. ***